New Techniques for Extreme Storm Analysis

9408730 Smith The design of high-hazard structures, such as spillways on major dams, is based on estimates of the Probable Maximum Precipitation (PMP). The Next Generation Weather Radar (NEXRAD) offers a wealth of radar data which utilization in the analysis of severe storm events will advance the understanding and measurement of extreme rainfalls and will improve the procedures for assessing PMP. The principal objectives of the projects are: to characterize the spatial, seasonal and diurnal heterogeneities in the occurrence of extreme rainstorms giving special attention to storm transposition and the specification of spatial and temporal patterns of PMP; and to assess the accuracy of radar rainfall estimates of extreme rainstorms. The results from this work will enhance the quality of the design of emergency dam spillways and other high risk structures, and the risk assessment of these structures. ***